The Internet Scout Project's Personalized Content Delivery System

This project is developing a Personalized Content Delivery System (PCDS) to promote and showcase NSDL materials and services, while at the same time collecting and disseminating information about the best new online SMET resources from outside the NSDL. Project objectives include: i) development of a set of "current awareness" services that deliver information about high quality, online SMET resources (from both NSDL projects and outside sources) to NSDL users in a fashion that best suits their needs; ii) extension and improvement of access to NSDL collections and services; iii) collaboration in the development of shared metadata across multiple disciplines; and iv) contribution to the overall digital library knowledge base by actively working with standard-setting bodies and organizations.